Enhancing the Teaching of Linear Algebra with Digital Image Processing

Mathematical Sciences (21). This "proof-of-concept" project is developing instructional materials that incorporate examples from Digital Image Processing (DIP) to enhance the teaching and learning of linear algebra. The key idea is that processing an image (or a sequence of images, i.e. a movie) is equivalent to operating mathematically on matrices. Since the results of such operations are inherently visual, students are guided by increasingly sophisticated visualizations, thus providing an opportunity to motivate the understanding of mathematical concepts and theory. Students first explore stretching, rotating, or flipping images, then proceed naturally to the study of contrast enhancement, detecting images in data corrupted by noise, feature extraction, edge detection, and techniques of data compression - techniques that all rely on using concepts from linear algebra.